Statistical Inference and Modeling for Complex Data

This project focuses on three research areas related to complex data.
The first research area is on high dimensional graphics, data analysis
and related topics. The second research area is on mixture models and
bump hunting problems. The third area is on models and inferential
procedures for data with biases. Several variants of likelihood,
semi-parametric and iterative procedures are sought for modeling and
making inferences about the data.

We live in the information age. Information often hides in data sets
with different appearances. Mining and modeling (massive) data sets
include the discovery of patterns, subcomponents, bumps, or special
events, and development of models that explain the data and predict
the future. This research is aimed at providing solutions to some
interesting problems arising from the data which are either high
dimension, or complicated, or with a sampling bias. Theories,
methods, and efficient computing algorithms are explored for
extracting useful information from the complex data. Application
areas include astronomy, neurosciences, quality control, and some
(other) observational studies.